Analysis and Design of Spread-Spectrum Radio Networks

Large scale radio networks are growing rapidly because of the demand for the transmission and sharing of information among many users. A key feature of these networks is that each transmission is a potential source of interference for all terminals within range of the transmitter. For such networks the use of spread spectrum signaling is highly desirable. Spread spectrum systems are characterized by the use of one or more distinct codes assigned to each terminal and modulated onto the carrier along with the digital data. Since most of these signaling techniques combat multiple-access interference without stringent power requirements, they are suitable for radio networks with mobile nodes. The specific research objectives include: development and analysis of purely broadcast spread-spectrum communication schemes, exploration of the efficient use of channel access protocols for (single-hop) spread-spectrum radio networks, performance evaluation of single-hop, spread-spectrum cellular mobile radio networks, and analysis and design of multi-hop, spread-spectrum radio networks.